Collaboration to Integrate Research and Education between University of Texas, Brownsville and LIGO

A long-term collaboration to integrate research and education will be
formed between the University of Texas at Brownsville (UTB) and the
Laser Interferometer Gravitational-Wave Observatory (LIGO). This
collaboration will incorporate four faculty members and approximately
ten students from UTB, and staff scientists and engineers from LIGO
laboratory. Research activities will focus on three main areas
related to gravitational wave data analysis: (i) software development
for detector characterization, (ii) software development for
gravitational wave detection, and (iii) construction of a distributed
processing environment to analyze gravitational wave data. Students
from UTB will spend approximately ten weeks each summer at the LIGO
observatory in Livingston, LA where they will install and test
software developed at UTB. Enhancements to education will consist of
two new graduate-level courses and four new undergraduate
courses/modules, which will integrate the research activities into the
curriculum.

The activities listed above are important for a variety of reasons.
The LIGO interferometers will soon be joined by similar gravitational
wave interferometers and several resonant bar detectors located in the
US, Europe, Japan, and Australia. This world-wide network of
gravitational wave detectors will open a new window onto the universe,
allowing physicists to understand better the nature of strong
gravitational fields and astronomers to "see" objects and catastrophic
astrophysical events that cannot be studied by more traditional
electromagnetic-based astronomy. The commissioning of the LIGO
interferometers is scheduled for the year 2000, and a two year
science-data run is planned for the end of 2002. Thus, it is essential
for the success of LIGO and the world-wide network of detectors that
software for analyzing the performance of gravitational wave detectors
and for searching for astrophysical sources must be developed and
tested within the next two or three years. The addition of new courses
at UTB and the opportunity for students to spend time at the LIGO
observatory should attract more students into science and engineering,
and consequently increase the number of minority students graduating with
science-related degrees.